CAREER: Atmospheric Physics on Climate Time Scales

The CAREER award will address the key scientific uncertainties in assessment and modeling of climate variability by focusing on moist convective processes and their linkage to the larger scale circulation. The award will enable Dr. Sherwood to strengthen undergraduate and graduate education and research training in climate sciences at Yale. A teaching program aimed at providing a physically based understanding of global-scale atmospheric behavior and climate will be developed as part of this project. The research and educational goals of the project will advance understanding and modeling of moist convective processes, particularly their role in regulating interannual climate variability through impacts on atmospheric lapse rate, moisture distribution and transport, and the hydrological cycle.